Starter Grant: Circadian Rhythms in Cyanobacteria

The circadian clock is a ubiquitous cellular mechanism that allows organisms to
temporally regulate gene expression and biological function. Organisms at all levels of
biological complexity, from prokaryotes to humans, temporally organize their cellular
functions to allow them to capitalize on the environmental conditions (light, temperature)
at any given time of day. Despite approximately 30 years of study on circadian
phenomena, little is known about the fundamental mechanism of the circadian clock.
Historically, model systems in circadian biology have been limited to complex eukaryotic
organisms. However, recently it was discovered that the single-celled photosynthetic
prokaryote, Synechococcus elongatus PCC 7942, has a circadian pacemaker comprised of
the products of at least three genes, kaiA, kaiB, and kaiC. The kai locus is expressed from
two promoters, one upstream of kaiA (monocistronic message) and one upstream of kaiB
(dicistronic kaiBC message), that are expressed in the same circadian phase in wild-type
cells. Previous work has shown that KaiA is required for expression from the kaiBC
promoter, and that overexpression of kaiA enhances expression from kaiBC, suggesting
that KaiA is a positive activator of the kaiBC promoter. KaiC is required for normal
levels of expression from its own promoter; however, overexpression of kaiC blocks
expression from kaiBC, suggesting a role in negative autoregulation. Although these data
suggest that there is transcriptional regulation at the kai locus promoters, there is no
direct evidence to suggest that KaiA or KaiC directly bind to kai promoters to regulate
transcription. Pervious work (funded by the NSF Fellowship for Microbial Biology)
identified a putative negative element within the kaiBC promoter region, whose presence
is required for normal levels of KaiB production within the cyanobacterial cell. Studies
proposed here aim to better define this negative element within the kaiBC promoter
region, and subsequently identify trans-acting factors involved in kaiBC expression.
The specific aims proposed here offer many opportunities that will contribute to
the development of a successful independent research laboratory in the field of
cyanobacterial circadian biology at The University of St. Thomas (a comprehensive
liberal arts co-educational undergraduate university). Results of the experiments proposed
here should advance our knowledge of the molecular mechanisms by which
cyanobacteria tell time by identifying new components required for prokaryotic circadian
timekeeping, while at the same time offering undergraduate students at The University of
St. Thomas the opportunity to obtain invaluable training in microbial genetics and
molecular biology (using the cyanobacterial circadian clock as a model system) by
getting hands-on experience by directly addressing the questions proposed in this grant.
In addition, students will have the opportunity to study prokaryotic circadian biology in
light of mammalian circadian model systems. Dr. Dwight Nelson, Professor, Department
of Biology, The University of St. Thomas, uses mice as a model system to study light
input into the circadian clock. St. Thomas students will have the opportunity to
investigate the scientific question of how organisms tell time utilizing diverse model
systems. In addition, students will learn the importance of collaborative efforts between
universities by working with Professor Susan S. Golden, Texas A&M University, to
annotate the S. elongatus PCC 7942 genome.